Collaborative Research: CDS&E: ReaxFF2: Efficient and Scalable Methods for Long-time Reactive Molecular Dynamics Simulations

This project aims to enable long-time simulations of reactive molecular systems through efficient
and scalable techniques. Long-time reactive simulations are critical for several scientific problems
such as catalysis, battery interfaces, biological simulations involving water, and emerging
areas like surface oxidation and chemical vapor deposition (CVD) growth. However, progress on
these fronts is limited because long-time simulations of large-scale systems are very difficult, if
not impossible, to perform using existing methods. The Reactive Force Field (ReaxFF) method is in principle
ideally suited for this purpose. However, the short time steps required in current ReaxFF simulations
and the computationally expensive force field formulation limit ReaxFF's temporal capabilities to
narrow simulation time ranges. This project aims to overcome such limitations by creating ReaxFF2,
which will extend time scales by one to two orders of magnitude - thus making large-scale,
long-time RMD simulations accessible to a wide community. Codes developed will be made publicly
available and results from this project will be highlighted on a dedicated website, and they will also be
incorporated into workshops by the PIs.

In creating ReaxFF2, the PIs will enhance the Reax force field formulation significantly, and develop
innovative algorithms and software implementations for scalable simulations. More specifically,
alternative ReaxFF interactions will be formulated to eliminate sharp derivatives in energy terms
and enhance ReaxFF time step lengths by at least a factor of four. To accelerate the dynamic charge
distribution models needed in RMD, scalable parallel preconditioning techniques for the iterative
solvers will be developed. A task parallel approach to compute interactions, hierarchical problem
decomposition, vectorization of the key kernels, and use of mixed precision arithmetics constitute
the main techniques that will be utilized to fully leverage the performance capabilities of large
computer clusters. Finally, capabilities of accelerated RMD concepts in the proposed ReaxFF2
formulation will be evaluated and inlined trajectory analysis tools for RMD will be developed
to facilitate the study of long-time RMD simulations. This project will significantly enhance the PIs'
software development, community building, and sustenance efforts for the RMD community. Codes,
functional forms, and parameter sets developed will be made publicly available, enabling fast and
accurate modeling of diverse reactive systems beyond the scope of this project. For community outreach,
results from this project will be highlighted on a dedicated website, and they will also be incorporated
into workshops by the PIs.

This award by the Office of Advanced Cyberinfrastructure is jointly supported by the Division of Materials Research
and the Division of Chemistry within the NSF Directorate for Mathematical and Physical Sciences.